Portfolio in Practice: Integrating Assessment and Instruction in Elementary Mathematics

This project will develop a model mathematics portfolio practice in which cycles of productive activity and assessment recur throughout each curriculum unit. The model is grounded in work in developmental psychology that emphasizes social and cultural supports and the role of motivation in children's learning. Two studies are planned: (a) a trial of portfolio practice to refine it and the measures needed to evaluate it; (b) a systematic comparison among classrooms that vary in curriculum approach and portfolio use to evaluate the impact of portfolio practice on classroom instruction and assessment, on teachers' knowledge of students' mathematical understandings and motivations, and on students' own understandings and motivations. Research measures include quantitative (group tasks, questionnaires) and qualitative (individual tasks and interviews, videotapes of classroom practices, field notes) methods. The work has import for diverse audiences: For educators, a completed set of materials for classroom portfolio assessment; for researchers, increased knowledge of fundamental relations among assessment and instruction practices and teacher and student outcomes; for evaluation specialists, an effective system of classroom assessment that has implications for the design of coordinated external assessments.